SGER: Carbon Nanotube Polyimide Microsensors by Micro Raman Spectroscopy

Pipes abstract

This SGER award supports the modeling, synthesis and testing of non-contact microsensors consisting of single walled carbon nanotubes suspended in hollow polyimide microspheres. Micro polarized Raman spectroscopy will be used to detect strain along the longitudinal axes of the single walled carbon nanotubes suspended within the wall of the microsphere and thereby determine overall microsphere deformation state. Correlation between Raman spectral results and microsphere deformation will be determined analytically as well as experimentally. Unique methods for synthesis of the of the polyimide microsphere developed earlier for high performance polyimide foams will be adapted to produce the microspheres in the range of 100 microns in diameter and containing single walled carbon nanotubes. Given the elevated temperature properties of the polyimide, the microspheres should withstand temperatures of 350 degrees Celsius. The material should have applications as a sensor material for pressure and temperature which can be interrogated optically.